SCI: WORKSHOP: Travel Support for the Workshop on Community Oriented Network Measurement Infrastructure

This proposed one-day workshop assembles experts in Internet measurement to explore the issues surrounding community-oriented approaches to network measurement. Noting similar successes in community-oriented infrastructure activities in other science and engineering domains, it is believed that coordinated and organized efforts to build, operate, and sustain distributed network measurement facilities and services for the Internet, Internet2, and other relevant networks is achievable. This workshop seeks to understand and elaborate on the challenges and issues faced in such an endeavor. The funds requested are to cover travel and lodging for the workshop participants. A workshop report will be generated summarizing next steps.